Presidential Young Investigator Award

Dr. Martin Poenie will be recommended for a Presidential Young Investigator Award. His research interests are in the area of signal transducton across the cell plasma membrane and ionic regulation of cellular processes. He has been a leader in development of fluorescent indicators and instrumentation to image calcium ions in single living cells. The Presidential Young Investigator Award will support the further development of these techniques and their application to important problems of cellular regulation.